Desorption and Spatial Nonlocalities in Polymer-Penetrant Systems

DMS-9972013

This award will support research on two main problems. The first is a study of
mathematical models for polymer desorption. In particular, the goal is
to model such anomalous behavior as skinning, where the penetrant substance
can become trapped inside the polymer matrix. The second part of
the proposal is a study of the spatial nature of the nonlocal effects in
polymer diffusion, which is caused by the disparate length scales in the
polymer network. The common problem in describing diffusion in polymers is that
the diffusion of the penetrant molecules in a polymer
entanglement network cannot be described by the usual models (Fick's Law) alone.
Rather, one must incorporate other nonlocal effects, using hereditary integral kernels.
This results in a model that contains a nonlinear partial integrodifferential equation.
This problem is perhaps best described as a moving boundary-value problem where
two distinct operators govern the phenomena on the two sides of the boundary.
In this work, existing models will be refined, and studies of diffusion and dissolution
will performed and compared with experiments. Different geometries and the effects
of swelling on the system will also be considered.

Because of their unusual, yet useful, properties, polymers have become invaluable
in industrial production. Diffusion in polymers does not follow the standard physical
laws as diffusion in other media, and hence a new mathematical approach is needed.
In particular, the penetrant molecules diffuse through interconnected polymer "pockets",
which leads to nonlocal effects. A mathematical model incorporating these effects
will be formulated and solved. One area where polymers are used is in pharmaceutical
applications, where the polymer is often saturated with a penetrant (such as a medicine),
and then allowed to release the penetrant slowly. Several mathematical studies in various
configurations, such as cylindrical devices, will be undertaken to analyze these phenomena.
Thus the research will have direct impact on nonmathematical areas, such as materials science
and pharmaceuticals.